New Mechanisms for Parallel Loop Scheduling

Lilja Automated assignment of separate loop iterations to different processors is a powerful technique for scheduling programs to run on parallel computers. This project is investigating four research approaches to loop scheduling: investigation of processor allocation strategies, minimization of time in loop-control critical sections, techniques for scheduling loops with large but regular execution time variations, and adaptive techniques for minimizing memory reference effects. Research methods include simulation and measurement of prototype implementations on several parallel computers.